Support for the Siegman International School on Lasers: 2015; 2-7 August 2015 in Amberg, Germany

2015 Siegman International School on Lasers will take place place 2-7 August, 2015 in Amberg, Germany. The Siegman International School is a week-long program that exposes students to in-depth learning of lasers and their applications from internationally recognized academic and industry leaders in the field. The scope includes all aspects of lasers and photonics. This program consists of lectures, networking events, professional development programs, poster presentations and research sharing and brings together the top 100 student applicants from around the world. With a commitment to ensuring diverse representation, OSA strived for a minimum of 10% attendance from developing nations.